CAREER: CPU and GPU Based Heterogeneous Architecture Design and Managements

Heterogeneous computer architectures, especially those that combine CPUs and GPUs, have become widespread in both desktop and mobile platforms. These architectures increase the complexity of architecture designs and the severity of resource management problems. To increase energy efficiency and performance in these architectures, this CAREER project investigates new resource management system that combines static and dynamic analysis. It uses analytical and statistical models to predict application performance and energy consumption behaviors. These models will be also used for exploiting heterogeneous architecture design choices. The proposed research brings together cross-disciplinary techniques from architecture, compiler, and power measurement systems, and researchers from academia and industry. The results of this research can be directly used for designing the next generations of heterogeneous architectures and software systems. The PI plans to collaborate with industrial partners to ensure a direct path for technology transfer.

In this project, the investigator plans to develop a new undergraduate course and a new simple GPU simulator framework for undergraduate students and graduate students. The proposed simulator will be available to a wide community of researchers.